Confidentiality Issues in Research and Policy Access to Microdata

Statistical agencies are pivotal in collecting and disseminating the data that guide the health and wealth of our nation. In their mediation between respondents and users, statistical agencies hold two mandates in tension: provide research and policy access to data and assure confidentiality. If an agency fails to properly disseminate data, its data collection is fruitless and wastes taxpayers' money. If the agency fails to protect privacy of respondents, it cannot collect quality data - because of increased nonresponse and evasive response -- and it violates ethical norms. The objective of this research is to develop and evaluate statistical and institutional procedures that better provide confidentiality and data access. The work will build on accomplishments, evidenced by published work, conference presentations, and interactions with statistical agencies, under a current NSF grant. The expansion entails constructing a conceptual model for research and policy access to data, developing and evaluating options for informed consent in data sharing and record linkage, deriving and assessing statistical disclosure limitation procedures based on the concept of matrix masks for public use files, evaluating other restricted access procedures such as licensing agreements, and improving privacy control methods for sequential access to computer databases. Establishment data will receive special attention. The proposed research will effect a significant extension of ethical guidelines, administrative rules, and legal specifications with respect to confidentiality and data access. The issues addressed are becoming increasingly important not only for the individual but for society as a whole.